Broadening Participation: 2019 MPS Workshop for New Investigators

Non-technical abstract
Meeting of New Investigators is organized to provide researchers with necessary information about NSF process, opportunities and mechanisms related to proposal submission. A group of first-time applicants or those who did not apply to NSF in the past will be provided helpful information designed to improve their proposal writing skills and understand the NSF process better. A mock proposal review activity will enable better understanding of the merit review process. Participation of PIs from small colleges and underrepresented groups was encouraged. Applicants from underrepresented groups are especially encouraged to apply, with a goal of broadening participation of talented new PIs from diverse backgrounds in STEM research.

Technical Abstract
Participants of the 2019 MPS Workshop for New Investigators will receive information about the NSF process presented by current or past Program Directors. Specifically, the participants will be trained in Merit Review Principles, writing a successful proposal, building a strong Broader Impact component, Conflict of Interest and Ethics rules and they will learn about funding opportunities within NSF. Participants will write and review one-page proposals, to be evaluated by panels, including a full panel review process, discussion and writing panel summaries. The two-day intensive training obtained during the Workshop is expected to be most beneficial to a diverse pool of young PIs and increase their chances of successful interactions with NSF.

This award is co-funded by Divisions within the Directorate for Mathematical and Physical Sciences: Division of Physics, Division of Mathematical Sciences, Division of Chemistry, Division of Astronomical Sciences and Division of Materials Research.